EAGER: Portable device for rapid and label-free identification of COVID-19 using an ultra-miniature handheld Raman spectrometer

A major critical gap in fighting the spread of COVID-19 has been (and will continue to be) the availability of safe and fast, point-of-care testing devices to rapidly detect infection by SARS-CoV-2. To this end, the vision of this project is to design and construct a portable optical platform to identify the presence of a virus in real time. The objective of developing this novel platform is to provide a robust prototype to identify viruses in a few minutes, with larger than 90 % accuracy. The project will integrate three different technologies, independently developed at Penn State University and Jet Propulsion Laboratory (JPL), to establish feasibility of mass production and deployment of such a device. Potentially this device could also in the future be used to identify other, new emerging viruses and quickly mitigate outbreaks and pandemics.

A team of virologists, data scientists, space scientists and spectroscopists will leverage existing JPL technology developed for the detection of water on the surface of the Moon, combined with a carbon nanotube, virus enrichment platform, in conjunction with a novel 2D metal surface able to enhance the signal-to-noise ratio of virus Raman spectra. Researchers will then obtain the Raman signature of different coronaviruses and will develop a robust data repository and machine learning models that can be used to store and process Raman spectra in real-time from different locations. The goal of this effort is to enable the quick identification of viruses in a label-free manner, with high sensitivity and specificity - this means no specific antibodies or polymerase chain reaction would be necessary for the detection of SARS-CoV-2. Development of these new capabilities will provide insights into material, surface-virus interactions, the fundamentals of the Raman spectra of viruses and machine learning models for virus identification via Raman spectroscopy.